Student Travel Support Program for the 63rd IEEE Conference on Decision and Control (CDC 2024)

This award will support students from institutions of higher learning in the United States to participate to the 63rd IEEE Conference on Decision and Control (CDC), to be held in Milan, Italy, December 16-19, 2024, along with pre-conference workshops to take place on December 15, 2024. The CDC has been for over fifty years the world’s leading annual forum for scientific and engineering researchers who share an interest in systems and control theory, and in the foundations of automation technology. As in the past, the 63rd IEEE CDC will feature an extensive program of contributed and invited papers, tutorial sessions, as well as plenary and semi-plenary sessions and workshops. The conference brings together academic and industrial researchers and students who share and explore their latest research ideas and discuss directions for future development of the field in light of current and anticipated developments in applications and technology. The range of topics covered at the annual CDC is extremely broad, mirroring the varied research threads and applications of control and systems theory. The system-theoretic approach has played a critical role in the development of many contemporary infrastructures and technologies affecting everyday life. Today, for example, system and control-theoretic tools are central in the design, operation, and security of cyber-physical systems, where they can inform researchers about ways to operate large networks (e.g., power, communications, computer, transportation, and health-related networks). Intensive study is also underway on the relationship of control theory and machine learning.

Students receiving travel funds from this award to attend the CDC will have many opportunities to interact with members of the professional community in a stimulating setting, and to exchange ideas with a broad group of professional colleagues. The large number of workshops before the conference and the interactive format of many of the presentations will allow additional opportunities for training, learning and for gaining experience in presenting technical results at a major professional conference. Special events will be arranged at the conference that focus on students and early career planning. Specific outreach efforts will be devoted to advertising the conference and the student travel award program to under-represented minorities.